Biogenesis of Photosystem II: Maturation and Stabilization of Transcripts of the psbB and psbC Loci of Chlamydomonas Chloroplasts

A complex aspect of chloroplast biogenesis is the pervasive involvement of postranscriptional processes within the organelle that govern the formation of mRNAs for proteins of the photosynthetic apparatus. We have isolated nuclear mutants of Chlamydomonas that do not accumulate chloroplast transcripts for two light-harvesting components, CP47 and CP43, of Photosystem II reaction centers. Mutants 6.2z5 synthesizes, but does not accumulate, psbC mRNA while GE2.10 is defective in stabilization of several transcripts from the psbB locus. The mutants appears to lack proteins that interact specifically with the mRNAs and function to protect degradation. For GE2.10 however, it is also possible the maturation of a polycistronic psbB transcript is impaired. Our studies include: 1) completing sequencing of the psbB locus to elucidate the products encoded by this region of the alga's chloroplast genome and the occurrence of secondary structures that presumably specify transcript maturation of stabilization; 2) characterizing the primary transcripts and products of psbB; 3) analyzing proteins from purified chloroplasts from wildtype versus the mutant strains, that bind to RNAs from psbB and psbC subclones; 4) isolating of genes encoding the RNA-binding proteins by use of oligonucleotide probes or complementation of the mutant strains by transformation with a plasmid library of wildtype nuclear DNA; 5) if time allows, assessing the roles of non-coding sequences of the psb transcripts by transforming chloroplasts of the mutants and wildtype with constructs of psbC gene fragments with psbB flanking regions (and vice-versa). %%% The photosynthetic apparatus of plants and algae is formed through the coordinated activities of two cellular compartments: the chloroplast, where photosynthetic activities are compartmentalized, and the nuclear/cytoplasmic chambers where many regulatory and photosynthetic proteins are synthesized. Although chloroplasts can synthesize a many photosynthetic proteins, especially those involved in light energy conversion into chemical energy, they are not autonomous with respect to either their ability to generate functional photosynthetic complexes or with respect to the regulation of their photosynthetic and synthetic functions. Our work concerns understanding how chloroplast gene expression is regulated by proteins imported from the cytoplasm. We have found that nuclear mutants of the unicellular green alga Chlamydomonas, which unlike vascular plants can easily grown by provision of simple carbohydrates, are defective in the accumulation of mRNAs encoding chlorophyll-binding proteins that are made in the chloroplast. This project is to characterize the nature of the defect which causes the chloroplast gene products to be rapidly degraded after they are synthesized. Our approach is to utilize gene sequencing, biochemical and genetic means to resolve the nature of the proteins that normally interact with and stabilize the chloroplast mRNAs.